Touch Learning in Octopus vulgaris

We plan studies of the cell biological basis of learning and memory in Octopus vulgaris. Octopus with 108 nerve cells has a highly developed brain. It is able to learn to learn to discriminate shapes visually and textures by touch. We believe that learning is accompanied by growth cone activity as in developing brains reawakened on a limited scale as learning occurs. As essential feature of growth cones is the extension of finger-like processes <0.5 um in diameter (filopodia) that can develop into new synapses. Their growth depends on actin polymerization. We have shown by electron microscopy (EM) that filopodia are present in learning neuropils in octopus and increase with touch learning and that cytochalasin D, which blocks actin polymerization blocks touch learning with a decrease in filopodial numbers. We have shown by electron microscopy (EM) that filopodia are present in learning neuropils in octopus and increase with touch learning with a decrease in filopodial numbers. Conversely nerve growth factor facilitates touch learning. We have found a protein in octopus brain, like one in Helisoma, antibodies to it to see if it blocks touch learning and causes decreased filopodial counts. NO synthase inhibitors block LTP in rat hippocampus and we have evidence that they block touch learning in octopus, which we will pursue.***//